A Computer Science Course in Computer Networks

9354762 Grygiel The field of data communications and computer networks has developed to the point where there are more topics than can be reasonable covered in any one course. Moreover, there is a strong emphasis on interconnection and interoperability. This is a proposal for a computer science course in computer networks which: 1. takes a top down approach; 2. focuses on the performance of upper layers of computer network architecture, on routing, and on routing protocols; and 3. requires implementation, experimentation, and mathematical analysis. Part of the project includes upgrading existing software, for the implementation of and experimentation with a simple internet. It also includes the development of other software to run experiments on routing protocols. Interconnection and interoperability is gained at layers above the data-link layer. A course which requires implementation, experimentation, and mathematical analysis, and which focuses on the performance of those layers will much better prepare computer science students than one which surveys the field of data communications.